The Predictability of Student Attributes and Instructional Milieu on Success in Developmental Math Courses, College Algebra, the CAAP Exam, and Matriculation to Degree

This Black Hills State University project builds on previously successful efforts to decrease attrition in pre-STEM mathematics courses and positions the university to investigate those variables in the teaching and learning process that are most influential in successful remediation within a developmental mathematics sequence. The goal is to determine what works in learning developmental mathematics by analyzing the results obtained after restructuring basic and intermediate algebra courses at Black Hills State University. Beneficial applications are translatable to all STEM disciplines, and especially to projects serving underrepresented students. This potential is underscored and expected as there already have been increases in student success achieved by the program in key pre-university level mathematics courses.